CISE Research Infrastructure: Multi-processor Cluster Computing, (A Research Infrastructure Proposal)

9502791 Zwaenepoel This award provides support for the acquisition of a cluster of shared-memory multiprocessor nodes interconnected by a high-speed network to support research in parallel programming systems, and algorithms and applications from a wide variety of disciplines. The infrastructure will be used as a research vehicle for computer systems designers as well as computational scientists. Research projects to be supported include work on compiler and runtimes for multiprocessor clusters, high-performance I/O, and performance visualization; and algorithms and applications in mixed integer programming, molecular dynamics, reservoir simulation, genetic linkage analysis, and seismic modeling. The infrastructure will also be used in new graduate and undergraduate courses in multidisciplinary design optimization, and parallel computing.